Shrinkwrapping Linear Programs

It is proposed that a new family of algorithms for linear programming (more
generally, for hyperbolic programming) be further developed, both computationally
and theoretically. Envisioned is a full mathematical development of the new
algorithmic framework, isolation of those ideas that appear likely to be pertinent
for constructing truly practical algorithms, and the free availability of implementations
(partly to encourage other researchers to participate and improve on the
efforts).
Unlike existing algorithms for linear programming, the new framework layers
combinatorial structure. The algorithms work through the layers sequentially,
beginning with the least complex one, and continuing until an optimal solu-tion
is attained, which generally occurs long before reaching the final layer, i.e.,
long before explicitly calculating with the full combinatorial structure. The new
idea of layering is made computationally tractable via the elementary symmetric
polynomials, their hyperbolicity cones, and the discrete Fast Fourier Transform
(dFFT).
Linear programming as a modeling tool is pervasive in daily applications, being
relied upon in all kinds of transportation scheduling, in an array of integrative
financial management activities, and more generally, anywhere that limited resources
need to be deployed most efficiently. A primary bottleneck to even more
extensive use of linear programs, especially in settings where data change often
is the computational time required to solve linear programs. Consequently,
development of a novel framework such as the one presented here has the poten-tial
of broader impact on society through the creation of algorithms capable
of attaining linear program solutions faster than before, thereby extending the
usefulness of linear programming as a modeling tool.
Intellectual merit for the proposal comes from the new framework's po-tential
to invigorate algorithmic investigations into linear programming (and its
extensions) by infusing inspiring new concepts into the research area, an area that
has largely become staid in the 20 years since interior-point methods created stir.
Intellectual merit also comes from the cohesion brought by the framework, a
framework that stretches from engineering (e.g., linear programming, dFFT) to
classical mathematics (e.g., symmetric functions, Riemannian geometry).